Mathematical Sciences: Nonlinear Elliptic Equations in Differential Geometry

9704861 Chen This project lies in the area of Riemannian geometry and nonlinear elliptic partial differential equations. The investigator wishes to pursue the problem of prescribing scalar curvature on spheres: given a function on a sphere, can one find a metric conformal to the standard metric whose scalar curvature is the given function? This problem can be stated in terms of a quasi-linear elliptic partial differential equation; the current project is to study various aspects of this underlying differential equation. Rimannian manifolds are higher dimensional generalizations of curved surfaces. Such manifolds have well-known applications in theoretical physics. A Riemannian manifold possesses a notion of distance, or a metric. And by taking the derivative of the metric one can measure its curvature. The problem of prescribing curvature then is to see if one can reverse this process: one specifies the curvature property first, and then look for a suitable metric.